Construction of a High Efficiency Ex-Vivo Bone Marrow

The purpose of this research is to construct a prototype ex vivo bone marrow and to analyze its function. The information obtained will be extremely valuable in understanding the principles of complex organ tissue culture in general, and for developmental biology of hematopoiesis in particular. The results of this research would greatly improve the availability and safety of the blood supply for clinical transfusion therapy, thereby improving the delivery of health care.